EDUCE: Enhanced Digital Unwrapping for Conservation and Exploration

This proposal is to develop a hardware and software system for the virtual
unwrapping and visualization of ancient texts. The overall purpose is to
capture in digital form fragile 3D texts, such as ancient papyrus and
scrolls of other materials using a custom built, portable, multi-power CT
scanning device and then to virtually "unroll" the scroll using image
algorithms, rendering a digital facsimile that exposes and makes legible
inscriptions and other markings on the artifact, all in a non-invasive
process. Preliminary work has demonstrated proof of concept. The project is
intensely interdisciplinary, requiring expertise in multiple domains. The
project is complex and presents significant intellectual and technical
challenges to information technology research, materials research,
engineering and the social sciences. The potential broader impacts of the
project are significant and immediately useful across a large set of
scholarly applications and institutional practices. Successful
implementation of the described system will enable noninvasive,
nondestructive examination of fragile texts and artifacts which contain a
wealth of information, allowing holders to share the intellectual content
of precious assets with individuals and other institutions.